Surface Phase Transitions in Alloys

9530469 Wynblatt This research consists of two main thrusts. The first focuses on the modeling of surface roughening -faceting and premelting phase transitions in lead alloys. It extends research from a previous grant in which Monte Carlo and Molecular Dynamics computational techniques were developed . Surface compositional and roughening-faceting phase transitions in lead-bismuth-nickel alloys are emphasized. The second thrust is an experimental approach to wetting transitions in liquid alloys in the gallium-lead system. A scanning Auger microprobe technique is used to study wetting transitions in liquid metallic systems under an ultrahigh vacuum environment. This permits surface composition monitoring for assurance that surfaces are free of random contaminants. The study on multicomponent alloy systems introduces composition as a variable thereby extending past research which emphasized pure solids. %%% Surfaces of alloy systems containing more than one component are subject to segregation phenomena. Surface segregation is relevant to many materials problems, including corrosion, oxidation, wear, and materials processing , such as sintering and joining. ***